SBIR Phase I: Device for In-Ovo Imaging of the Early Chicken Embryo

This Small Business Innovation Research (SBIR) Phase I research project will develop methods to automatically image and detect the early embryo in the chicken egg while sustaining hatch. A freshly laid fertile egg contains quiescent cells known collectively as the blastoderm. The blastoderm is covered by a membrane, and its position is not fixed as it rotates freely near the yolk surface. Automation of either the injection or sampling process mandates a procedure that automates the imaging of the blastoderm. Research will focus on optimizing hardware and software to produce an imaging system that can be used to sense the blastoderm in two dimensions.

The commercial application of this project will be on the poultry industry, for production of pharmaceuticals in eggs and / or for producing transgenic chickens with superior traits.